CSR: SHF: Small: Propagator-Based Computing, A Programming Foundation for Decentralized Systems

This project develops the Propagator Model, a concurrent decentralized
framework designed to support computing in large, open, dynamic
environments. It provides powerful tools for organizing computations
to operate effectively in a world of rapidly changing and globally
inconsistent data by adopting a fundamental shift in viewpoint: the
things manipulated by basic computing elements are not fixed values.
Rather, they are information about values, and this information is
continually refined as new information becomes available.

This project creates the architectural and linguistic foundations for
systems that can operate effectively in environments where there is no
central management, and where one cannot rely on resources being
consistently available or consistently operating, and where the data is
rapidly changing and globally inconsistent. Using three mechanisms
implicit in the computational substrate: (1) constraint propagation,
(2) partial information structures, and (3) dependencies, systems
built on the propagator model automatically have the ability to
support their conclusions with arguments and report on the provenance
of the ingredients. They can automatically discover and use
consistent subsystems of inconsistent data.

This project erects a naturally concurrent and distributed model and
infrastructure for computation that makes it easier to build systems
that are reliable in the face of natural failures and deliberate
attacks. It provides support for auditable and accountable systems
that are robust and adaptable to novel applications.